Partial Support for Publication of the Proceedings for a Workshop on Non-Accelerator Particle Physics; Rochester, NewYork; June 1-2, 1987

A workshop was held at the University of Rochester on June 1 and 2, 1987 to consider experiments in particle physics which do not involve the use of accelerators. The workshop was open to all interested physicists and there was wide international participation. About 180 physicists registered. This action would cover part of the cost of publishing the proceedings. The topics covered were: Large Underground Detectors, Solar Neutrinos, Cosmic Rays, Dark Matter, TeV Gamma Rays, and Neutrinos from Supernova.